MRI:Acquisition: A Software-Defined Radio Based Testbed for Next Generation Wireless Networks Research

Proposal #: 10-40207
PI(s): Qian, Lijun; Annamalai, Annamalai
Institution: Prairie View A&M University
Title: MRI/Acq.: A Software-Defined Radio-Based Testbed for Next Generation Wireless Network Research
Project Proposed:
This project from an MSI, principally undergraduate university, acquiring/building software-defined radio (SDR) platforms for wireless monitoring and surveillance, aims to test and verify theoretical results for synthetic Multiple-Input-Multiple-Output (MIMO) systems. The work will
- Enhance PHY and MAC visibility of operational wireless networks by distributed acquisition of RF signals and decodable frames and
- Facilitate evaluation and repeatable experimentations in ongoing research projects in the area of wireless communications and networking,
The project involves
- Development of software tools for trace collection and replay for repeatable experimentation;
- Collection of extensive wireless traces in campus environments to understand propagation characteristics, device types, and co-existence issues;
- Construction of device fingerprint database for commonly used wired devices; and
- Performance of synthetic MIMO experiments in a fully controlled environment.
Broader Impacts:
The experimental facility is likely to advance research in wireless monitoring and diagnosis by collecting comprehensive wireless traces and supporting design, analysis, and optimization of distributed space-time processing in both controlled and real-world deployment conditions. Complementing the existing apparatus for telecommunication system design within two centers, it should greatly strengthen and broaden wireless activity. Consequently, it will help students to obtain hands-on experience and expertise in theory and practice of experimental wireless and cognitive radio techniques. Thus it contributes to train highly skilled personnel in a critical area.